Mandible Correlates of Contrastive Emphasis in Repeated Corrections

The study is an experimental investigation of jaw movement: how jaw movement changes as a function of whether the speaker emphasizes a word when s/he is asked to clarify a word a listener misunderstood, and also, how jaw movement changes when the speaker must repeat this same word several times in order to make himself understood by the listener. The method involves examining jaw movement tracings from x-ray microbeam recordings, which have already been collected for four speakers. These jaw movement traces will be measured in terms of various duration, velocity and displacement measures using a recently developed software tool. Tentative statistical analyses will be applied to these measurements to plan for future research which would involve a large number of subject in order to identify which jaw measures are most useful in characterizing contrastive emphasis. Although previous studies have examined jaw movement associated with contrastive emphasis, no study to date has looked at jaw movement of unrehearsed impromptu speech, and especially not of speakers saying the same utterance with repeated corrections. As an experimental study, it is independent of any particular theoretical framework; however, one of the goals of this endeavor is to better understand the underlying organizational principles of speech considering existing theoretical models. In particular, jaw movement pattern in a seminatural dialogue situation will be interpreted as an aspect of the prosodic representation of the utterance, relating observed articulatory gestures to perceived of emphasis placed on one of the three digits in a sequence, in the context, like, "No, it is nine FIVE nine Pine Street" (the capitalized digit indicates the word the speaker emphasized). The findings of this study are proposed to be interpreted to examine the validity of several current theories of articulation-based prosodic organization models; in particular, the PI's recent theory of phonetic implemen tation (the converter-distributor model) will be evaluated determining its system parameters such as the relation between the numerically augmented metrical pattern and magnitudes of syllables and boundaries.